Distant Galaxy Studies: A Multiwave Length Attack on the Early Phases of Galactic Evolution

This award funds a continuation of fundamental research on the properties of very distant radio galaxies by one of the world leaders in this field. Investigations of these objects will attempt to locate objects still in the accumulation phase which will later form the early galaxies. The relation between the optical and radio emission of early active galaxies will be studied to help explore the origin of the light, emitted in the ultraviolet, which we see red-shifted into the visible portion of the spectrum.